MAGPIE: A Magnetic Passive Isotopic Experiment

This project will provide logistical support for the launch of a long duration balloon for the study of the isotopic composition of heavy (iron group) cosmic rays. The project is called MAGPIE: Magnetic Passive Isotope Experiment, and consists of special plastic sheets that can be etched to reveal tracks made by energetic cosmic rays. The plastic is mounted in a strong magnetic field that is produced by a superconducting magnet. The experiment will determine the isotopic composition with unprecedented accuracy, and will thereby provide information on the elemental makeup of the galaxy and the stellar processes which produce all of the heavier elements. Due to the high geomagnetic latitude of Antarctica these fairly low energy heavy ions will reach the atmosphere in much larger numbers than they would at mid-latitudes. This, combined with the lack of diurnal heating and cooling of the balloon, because of the constant sunshine during the polar summer, makes long duration ballooning in Antarctica for cosmic ray research very attractive. The funds for the researchers and the launch of the balloon will be provided by NASA. NSF will provide logistical support and the recovery of the payload.//